SBIR Phase I:RAPID Assessment of In-Situ Isolation Systems for Marsh Environments

The proposed study will protect 2 discrete areas of marsh with 200 plastic
barrier film isolation units (In Situ Isolation Systems - ISIS) as oil encroaches the area. The
isolated areas will be studied for protection from oil and plant health for up to 2 weeks before
onset of contamination and 6 weeks after. If effective, rapid scale up to larger areas of marsh is
proposed. Industry collaborations to enable further scale up have been defined.